Wireless Communication Systems Laboratory Short Course for Electrical Engineering Faculty

Technology that can be used for wireless information networks is currently undergoing rapid development. Such networks are taking an expanding role in the world's telecommunication infrastructure and interest in wireless communications is growing faster then ever. It is important for schools of electrical engineering and computer engineering to prepare their students for careers in this important discipline. This project relates to offering a short course suitable for electrical engineering undergraduate faculty interested in developing a Wireless Communication Systems Laboratory at their home institution or including wireless topics in the courses they teach.